Development of a Comprehensive Model of Problem Solving in Classical Genetics

The purpose of this project is to extend an ongoing research program which seeks to understand the nature of problem solving in classical genetics. Previous research by the Principal Investigator has demonstrated numerous distinctions between successful and unsuccessful problem solvers on a variety of moderately difficult genetics problems. The proposed research will supplement and extend work with difficult genetics problems. It will also supplement and extend this data by analyzing the video taped interviews of a broad range of subjects as they attempt to solve "real-world" genetics problems such as those requiring the analysis of pedigrees or of non-idealized experimental data. The problem representation study of Chi, Feltovich, and Glaser (1981) will also be essentially replicated in an effort to obtain preliminary data regarding planning. During these studies and an additional longitudinal study of four subjects, special emphasis will be placed on identifying potential developmental patterns. Based on these findings, a computer program is to be generated which will model the genetics problem-solving performance of subjects from a variety of levels of expertise. This project addresses the Research Program's goals for advancing the understanding of the development of problem-solving abilities in a specific subject matter domain (genetics/biology) in a manner that has significant implications for developing more effective instruction. The Principal Investigator is a young researcher who is well-qualified to conduct this research. In carrying out the computer modelling phase of the project, he will collaborate with Wyllis Bandler, a computer scientist at Florida State University.